CAREER: Robustness Analysis in the Design of Nonlinear Feedback

9624885 Megretski The proposed research will concentrate on rigorous analysis of special classes of essentially nonlinear feedback design with application in self-tuning, delta-sigma modulators, anti-reset windup, and computer simulated locomotion. One major objective of the research is to demonstrate how the local analysis of robustness can be used in the global analysis of essentially nonlinear feedback systems, to produce results not matched by any other approach. Another general objective is to propose new solutions, and analyze the known "ad-hoc" solution to several well-known nonlinear feedback problems. Analysis of relay feedback systems. Feedback interconnection of a relay feedback with a linear time-variant plant will be considered. The situation in which such interconnection induces self-oscillation (a limit cycle) will be of most interest. Sufficient conditions for the global stability of such limit cycles will be derived, and the sensitivity of the oscillations in the presence of external inputs will be estimated. In particular, analysis of relay-based self-tunning of PID feedback will be done. Another application will be the analysis of delta- sigma modulators. In general, this part of the research project is aimed to compensate for the lack of methods suitable for rigorous analysis of piecewise linear systems. Feedback control with magnitude and rate constraints. The problem of control of linear and mildly nonlinear systems with constraints imposed on control signal rate and magnitude will be considered. The prime objective will be to improve the speed and efficiency of the control response, expressed in terms of induced norms and other parameters characterizing the transient behavior. Another objective is to provide a rigorous basis for a comparative study of different anti-reset windup designs. Feedback control of computer animation. This part of the project involves research on the feasibility of real-time dynamically simulate d computer animation of an open-loop unstable object. The "object" will be a three-dimensional system on joints, normally having at any time one or two joint ends touching the ground, and maintaining stability by changing the angles between the joints in a coordinated manner. Ultimately, the object will have most of the dynamical features of a human body, through the initial models will have less degrees of freedom. The goal is to teach the object to "walk" in the presence of the gravity force. It is most likely that the stability of the human body motion is ensured by several feedback loops governed by the autonomic nervous system. However, the actual control laws defining these feedbacks are not known. The main objective of the proposed research is to show that, using an advanced nonlinear feedback control methodology, it is possible to find algorithms for real- time stabilization of the open-loop locomotion, at least in the case of a simplified model. The research will also be aimed at studying the algorithms for stabilization of repetitive open-loop unstable motion. Integrated educational software. The educational component of the proposal is aimed at the development of an integrated software package and special methodology for the undergraduate class in "Systems and signals", to provide a tool for state-of- the-art, learning based, and practice-oriented education. The system will provide (a) computer-assisted multimedia-based presentations of course concepts; (b) student self-training using random generators of drill problems; (c) automatic problem generation and evaluation programs for official testing; (d) an open architecture allowing further accumulation of the knowledge. Ultimately, the proposed development should facilitate a major change in the forms of the university education. ***